ITR/SY: Quantum Computing with Trapped Ions

It is planned to addresses the high-fidelity storage and manipulation of quantum information in trapped atomic ions. Rudimentary quantum logic operations will be demonstrated between a few qubits, using atomic cadmium ions confined in a rf ion trap. This will permit a demonstration of repetitive quantum error-correction schemes. Multiplexing schemes will also be investigated.